SBIR Phase I: Developing An Unique Variable Orifice Fuel Injector to Enable Advanced Mixed-Mode Combustion

This SBIR Phase I project will develop a micro-variable circular orifice fuel injector that is intended to result in clean combustion for light duty auto diesel engines. The injector can provide flexibility for atomization in different applications.

The broader/commercial impact of the proposed project will be the potential for improved fuel efficiency and reduced automobile emissions. If successful, it will help U.S. automakers to meet the challenges faced by new government regulations for emissions and fuel efficiency.